8th International Conference on Textures of Materials, Santa Fe, NM, 9/20-25/87 (Materials Research)

This grant is to provide partial funding for The Eighth International Conference on Textures of Materials. to be held at Santa Fe, New Mexico, September 20.25, 1987. The scientific topics to be presented and discussed include the following: development of textures during annealing, textures which result from phase transformations, anisotropy of physical and mechanical properties, textures in ceramics, polymers, geological materials, and thin films, theoretical and experimental methods to study textures in materials. The conference will provide a forum for the leading scientists in the world to present the results of their research, and for these scientists to discuss the latest results worldwide. The progress in the state.of.the.art in topics of the conference will thereby be focused and advanced by this open exchange of ideas and results. The topic for discussion have implications for processing of metals, advanced ceramics and electronic and magnetic materials. These materials and their processing impact virtually every technological in the U. S. economy in some measure.